The Role of Radiation in the Diurnal Variations of the Marine Stratus Near the Shoreline

The objective of this research is the development of a marine boundary layer model, which includes turbulent exchange, radiation, and teh micorphysical structure of low (stratocumulus) clouds, to investigate the diurnal evolution of these clouds which form along the coast of California.